Automated Classification and Analysis of Power System Disturbance Waveforms Using a Neural Network Approach

9412764 Lubkeman The objective of this proposed project is to investigate and develop a scheme to further automate the monitoring, recording, and diagnosis of power disturbances for power quality studies, using a combination of artificial neural network (ANN) and case- based reasoning (CBR) approaches. The proposed research is (a) to develop a scheme to automate the data collection process of recorders--this involves an ANN methodology for the classification of waveforms that are captured and a rule-based relational database design for the effective archival of data, and (b) to investigate the applicability of a case-base reasoning approach towards aiding the diagnosis of disturbances. This research represents a step in the direction of intelligent diagnostic and measurement tools using state-of- the-art artificial intelligence technologies which are just emerging. It would be a significant improvement over present-day recorders, providing for further automation of the measurement and diagnosis of disturbances. ***